Characterizations on Stability Properties for Nonlinear Systems

0072620
Wang

This proposal outlines a research program aimed at understanding the
behavior of systems with regard to external inputs such as disturbances
and track signals. Specifically, two types of stability properties will be
examined: input-to-output stability and incremental stability. Roughly
speaking, input-to-output stability requires that the output signals
eventually become small if the external input signals are small, and in
particular, the output signals should converge to zero when there is no
input acting on the system. Incremental stability properties require nearby
trajectories with nearby inputs stay nearby, and eventually converge to
each other. These properties are nonlinear generalizations of some
frequently used ones in the study of linear systems. To understand the
properties in the nonlinear case well, it is crucial to explore their
equivalent characterizations, among which the Lyapunov-like functions
provide the most intrinsic insight. The main objective of the project is to
investigate the equivalent characterizations and to develop the theory of
Lyapunov-like functions for the nonlinear stability properties.

One of the main issues in systems and control theory concerns with the
study of system sensitivity to disturbances, and more generally, of the
dependence of outputs on actuator and measurement errors, magnitudes of
tracking signals, and the like. For linear systems, the frequency domain
approach has led great success in the study of such problems. Yet for
nonlinear systems, the situation is much more complicated. A key issue in
the nonlinear case is to identify the most desired features and to formulate
them into suitable mathematical notions. During the last 10 years or so,
the notion of input-to-state stability was formulated and it quickly became
a fundamental concept upon which much of modern nonlinear feedback
analysis and design rest. In this project it is proposed to investigate a wide
variety of extensions of the notion of input-to-state stability. The goal is to
build a theoretical foundation for the study of stability-like properties for
nonlinear systems, thereby providing a set of sound theoretical tools for
nonlinear systems design.